Increasing Alaska Native Matriculation in Sheldon Jackson College's STEM Programs

Sheldon Jackson College (SJC) proposes to increase the number of Alaska Native
students matriculating in and completing its STEM programs by (1) adjusting its STEM offerings
to more effectively meet the employment needs of the Alaskan economy , particularly the needs
of resource-rich Alaska Native owned corporations, (2) preparing Native students for success in
STEM programs through a summer academic enrichment program and ongoing academic support
once students enroll in college, and (3) developing and implementing faculty development to
enhance effectiveness in teaching Alaska Native students at Sheldon Jackson College with an
emphasis on STEM faculty.
Curriculum. GOAL: To strengthen the four degree programs requiring extensive
STEM preparation : Ecology; Fishery Biology & Culture; Marine Biology; and Secondary
Education - Science by providing graduates with emergent job-ready knowledge. While the panel
found these degree emphases generally responsive to employment needs within the Alaskan
economy, they identified the following gaps to be addressed as objectives under this goal:
OBJECTIVES: 1) Establish and provide instructional capacity in the use of Geographic
Information Systems (GIS); 2) provision of a stronger theoretical orientation in ecology, fisheries
and marine biology coursework; 3) establish and offer a course that comprehensively surveys the
enormously diverse Alaskan environment, its natural resources, and its resource management
needs.
Student needs. GOAL: To strengthen Native student success in STEM coursework that
leads to degrees in sciences and mathematics. Data compiled by the Alaska Department of
Education and Alaskan school districts reflect that Native high school students achieve far below
average in comparison to other Alaskan students, especially in math. SJC's experience indicates
that first-semester developmental coursework is insufficient to effectively prepare students for
college level courses. Earlier intervention is required, and can be informed by data identified and
quantified through High School Graduation Qualifying Exam and the No Child Left Behind Act
testing provisions.
OBJECTIVES: 1) Establish and provide a summer academic enrichment program in
math and science for Native high school students in partnership with school districts. 2) Provide
campus-based academic support services wrapped around math and science course work.
Faculty development. GOAL: To strengthen the effectiveness of SJC faculty in
teaching and mentoring Native students in their STEM courses. Available literature indicates that
intercultural classroom communications is complex and frequently counterintuitive, and yet,
preparation for teaching in culturally diverse classrooms is seldom a requirement for college
faculty.
OBJECTIVE: 1) To establish and provide pre-academic-year cross-cultural education
faculty workshops, and participation in ongoing workshops as opportunities arise. This will
include 2) participation in school year-end assessment and refinement of the College's strategies
in supporting Alaska Native student success, particularly in the sciences and math.